A Concentration Year in Dynamical Systems

ABSTRACT

PIs: Douglas Lind and Selim Tuncel
Proposal: DMS-0222452
Institution: University of Washington

This proposal requests funding for a Concentration Year in
Dynamical Systems at the University of Washington. A major
focus of activity will be a collaborative effort to solve
the Furstenberg Conjecture, a central problem in dynamics.
Participants in the program will include a mix of long-term
participants, including regular faculty, visiting faculty,
post-docs, and graduate students at the University of
Washington, and short-term visitors.

NSF funds will be used to support graduate student travel
to conference and workshops and six junior short terms
visitors.